REU Site: Nano/Bio Engineering at Notre Dame

This award provides funding to the University of Notre Dame for a three-year REU Sie Program entitled, "Nano-Bio Engineering at the University of Notre Dame," under the direction of Dr. Marya Lieberman. This ten-week summer program will provide in depth research opportunities for 12-14 students per year (plus an additional 3-5 international students) in projects which apply nanofabrication and mathematical modeling to biological or biochemical problems, or which draw on biological approaches to solve engineering problems. This REU Site will give students and faculty pariticpants a chance to carry out collaborative research in the "nano-bio" area and students will become part of an interdisciplinary team.